Incorporating the Graphing Calculator into the Mathematics Classroom

Ten one day workshops will be presented to promote the immediate and widespread use of graphing calculators into the undergraduate mathematics curriculum. This project will provide 250 undergraduate math faculty with (1) detailed training on the mechanics of the calculator, (2) ideas as to how the calculator can be used in specific courses, (3) the opportunity to develop instructional materials for those courses, and (4) the opportunity to share their experiences with colleagues. The four member project team will visit 10 community college campuses to give these workshops to interested two- and four-year college mathematics faculty. Each participant will receive a TI-81 graphing calculator and each institution a calculator projector kit to encourage instructors to continually explore potential uses of graphing calculators in mathematics instruction. The project director will create, edit, and publish a newsletter, and three follow- up meetings are scheduled so that participating faculty can share their experiences.